Mathematical Sciences: Geometry and Topology

The investigators will pursue research in various areas of differential topology, differential geometry, and algebraic geometry. More specifically: 1) John Wood will study the topological, differential, and complex structure of algebraic manifolds, especially questions on deformations and analytic embedding. 2) James Heitsch will continue his study of the geometry of foliations and the extension of the theory of analytic invariants to foliated manifolds. 3) Anatoly Libgober will study the topology of algebraic varieties, especially questions on the structure of the complement of branching loci and its relation to problems of classification up to deformation.